Growth of Nanowire by Step Decoration

9624753 Himpsel This project aims at finding new, universal methods for obtaining self-assembled one- and zero-dimensional metal structures by decorating step edges at vicinal surfaces. The surface energetics and the conditions for smooth, row-by-row growth will be determined by coupling STM with sophisticated growth and spectroscopy techniques. Particular emphasis is placed on magnetic nanostructures for use as magnetic sensors and storage media. %%% The goal of this project is the design of artificial materials that consist of ultrafine wires, about one hundred times narrower than those produced with current micro- structure fabrication techniques. New patterning methods will be developed where atoms arrange themselves automatically at a stepped crystal surface. Applications of the new materials in magnetic data storage will be pursued. ***